Travel to Attend: U.S. - Europe Symposium: Visit to Norwegian Technological Institutes and Det Norske Verita Oslo; Trondheim, Norway; August 11-17, 1985

Travel support is provided for a participant to attend an international conference in Trondheim, Norway. The researcher has planned a visit to several laboratories in addition to a discussion with a committee member who is preparing a joint report with the investigator. The presence of a representative from the United States to the international meeting is important because it will enable the researcher to keep abreast of development in foreign countries.